Updating the Maxwell Museum's Information Management System

With National Science Foundation support, the University of New Mexico's Maxwell Museum will purchase an ARGUS computer system and use it to manage their large and valuable anthropological collections. The ARGUS system includes a relational data base which will allow artifacts to be catalogued, described and retrieved in different combinations according to required criteria. It will also be used to record registration and loan data. The result will be improved management of the collections and increased ease of use for researchers. The collections of the Maxwell Museum consist of approximately 15,000 individually catalogued and 7,500 cubic feet of box stored archaeological materials, 30,000 individually catalogued ethnological objects as well as large numbers of photos, slides, paintings and other materials. Not surprisingly, they focus on the Southwestern United States. The archaeological materials span the period from Paleoindian through contact times and are particularly strong in documenting late Puebloan and contact period occupation from about 1250-1700 A.D. The ethnographic materials include extensive series of kachinas as well as sand paintings and constitute a particularly valuable resource for students of native American cultures. The Maxwell Museum was one of the first in the United States to automate its collection management and the original SELGEM system is both inadequate and out of date. As a result, it is difficult to find and track materials and to meet researchers' specific needs. Installation of ARGUS will remedy this situation. This project is important because it will help the Maxwell Museum curate its large and irreplaceable collections. It will increase access not only to scientists but to the general public.